COMETS (Career Opportunities for Meritorious Engineering Technology Scholars)

Thirty scholarships are being awarded annually to financially needy, academically talented students majoring in Civil Engineering Technology, Electrical Engineering Technology, Fire Safety Engineering Technology, and Mechanical Engineering Technology. This project is providing a bridge between a successful high school program designed to interest and prepare students for careers in engineering technology and the university engineering project known as MAPS. The MAPS project is making available peer mentoring, supplemental instruction, tutoring, study groups, professional development activities and student chapters of professional organizations to students enrolled in the College of Engineering. The project is increasing the diversity of engineering technology students and increasing the number of engineering technologists available to employers.